Multiphase Transport Phenomena Curriculum Development

This award provides funding to Michigan State University for the support of a two year, Combined Research-Curriculum Development (CRCD) project entitled, "Multiphase Transport Phenomena Curriculum Development," under the direction of Dr. Charles A. Petty. The goal of this project is to develop and implement a multi-institutional curriculum on multiphase transport phenomena (MTP) that builds on the existing course offerings in the participating departments. The proposed MTP curriculum draws on the research accomplishments of nine laboratories at Michigan State University, the University of Akron, and the University of Tulsa. An important object of the project is to provide training on the practical use of multiphase computation fluid dynamics (CFD). The new curriculum will be designed to 1) train students from different engineering backgrounds in the use of multiphase computational fluid dynamics; 2) introduce students to state-of-the-art experimental techniques employed to validate multiphase transport models; and, 3) teach students how to critically analyze and interpret CFD results.